Decision Making and Measurement: Search for a Coherent System of Theories Interlocked by Measurements

This proposal outlines an ambitious investigation of behavioral theories of decision making with the goal of building a coherent method for measurement of utility and value. Previous studies of expected utility have produced two results: First, a variety of significant and reliable violations of utility theory have been reported. Second, several variations of the standard theory have been proposed to account for these violations. The proposed research is designed to begin the construction of a behaviorally- based coherent framework. A central idea behind the proposed research is the search for a common utility scale underlying behavior in a variety of tasks. The goal is to determine whether it is possible to provide a coherent system of utility equations to describe behavioral decision making. Procedures developed by the principal investigator in other domains will be applied to develop a framework for the research. The proposed approach has the potential to account for a wide range of phenomena and to resolve several controviersies in the literature. Even if the proposed effort does not work out, the experiments will yield interesting new findings which will enhance understanding of risky decisions. In all, the potential return from this project is substantial.